Postdoctoral Research Fellowships in Plant Biology

Eukaryotic genes often have regions of DNA which do not encode protein sequence. These regions, called introns, are transcribed into RNA but are spliced out before the mature messenger RNA is translated into protein. Dr. Brian D. Keith, a Postdoctoral Fellow in Plant Biology, plans to study this process in Arabidopsis Thaliana in the laboratory of Dr. Gerald Fink at the Whitehead Institute. Because the inability to correctly splice a messenger RNA for an essential protein would be lethal, he will first make temperature sensitive mutants, mutants which can correctly splice the mRNA at one temperature and not at another, and then look for splicing mutants. This work should contribute to our understanding of a fundamental mechanism in plants about which little is known.